MRI: Development of a Large-Scale Refractive-Index Matched Flow Facility

0923106
Christensen

"This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)."

Advanced optical techniques (such as PIV, LIF and LDV) represent the most well-resolved and accurate means of experimentally documenting the physics of flows, yet there exist a wealth of practical complex flows spanning many fields of science and engineering that have yet to be rigorously explored due to inadequate optical access, including flows over complex topography (relevant to aerodynamics and geophysical phenomena, for example), within complex geometries (flow in porous media and coral reefs, turbines, etc.) and in the presence of particulates (sediment transport, nutrient transport, pollutant and aerosol dispersion, etc.). This lack of high-quality experimental data necessarily limits the design of effective models, predictive tools and/or control strategies for these important flows. It is proposed to transform the experimental study of such flows by developing a large-scale flow facility that will alleviate these debilitating issues by allowing the refractive index (RI) of the working fluid to be tailored to match that of the solid (or particulates) under study. This RI-matched (RIM) flow facility will permit Illinois researchers to render complex solid models and/or particulates optically transparent when immersed in the working fluid, thereby minimizing reflections and distortion and facilitating thorough non-intrusive experimentation. The uniqueness of this facility includes its large spatial scale (0.45 m × 0.45 m × 2.5 m test section), allowing the study of flows at relevant scales and Reynolds numbers with high temporal and spatial resolution, as well as the types of working fluids to be accommodated.